Excellence In Research: Nature-Encoded Engineering: AI/ML For Computational Reverse Design For Intelligent Biomimetic Structures

This project supports research to establish a computational framework that translates nature’s structural designs into engineering practice through artificial intelligence and additive manufacturing. Biological structures have evolved billions of years solving complex optimization problems to achieve superior strength to weight ratio and efficient load transfer mechanism, yet engineering practice rarely captures the principles behind these smart structures in a systematic way. Existing biomimetic approaches remain largely ad-hoc and grounded in qualitative analogies rather than computable rules. This project addresses this gap by extracting quantitative, machine executable design rules that link morphology to performance, encoding these rules into AI-driven generative design workflows, and validating them through mechanical tests and rapid prototyping. Research outcome is expected to support next-generation lightweight, multifunctional, and sustainable structures for various engineering design applications. Conducted at Prairie View A&M University (PVAMU), this project builds sustainable research capacity and student participation in AI-driven engineering design through curriculum integration, undergraduate and graduate research training, Virtual Reality (VR) learning modules, and K-12 outreach to neighboring school districts.

Research enabled by this award will establish and validate a Nature-Encoded Engineering design framework through three integrated objectives: (i) formulating a physics-informed machine-learning (PIML) surrogate-accelerated topology optimization system to generate datasets of geometry-performance pairs on structural hierarchy, cellular, and graded biomimetic morphologies under systematic sweeps of boundary conditions and functionality constraints; (ii) curating the Nature-Encoded Morphology and Performance Dataset (NEMPD) that combines topology optimization data and biological structural systems to apply graph-based descriptors, symbolic regression, and interpretable machine learning to extract validated design rules that are embedded into rule conditioned generative AI models, including diffusion architectures for engineering design synthesis; and (iii) validating the rules through simulation, additive manufacturing, and mechanical characterization, benchmarking the framework on rule fidelity and performance gain. Project outcomes include morphology-performance dataset, a validated rule library, rule-conditioned generative design model, and a three-tier VR education application that translates research outputs into undergraduate coursework and outreach. The framework advances biomimetic design toward systematic, knowledge-informed engineering and is adaptable to other structural design domains.